Connection of Coe College to NSFNET

9319327 McCormick This project connects Coe College to NSFNET through CICNet over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.